A High Resolution Monitor for Carbon Monoxide and Nitrous Oxide Using A Zeeman Split Xenon Laser

9220545 Kebabian Carbon monoxide and nitrous oxide are important tropospheric trace gases whose concentrations in the atmosphere are increasing annually. High precision, simultaneous, measurements of carbon monoxide and nitrous oxide can be used as a tracer for urban activity within an air mass at remote locations. This project will attempt to develop a high resolution monitor for both carbon monoxide and nitrous oxide using infrared absorption form a neutral xenon laser light source. The pulsed laser, operating on the 4.54um xenon line, can be zeeman split with a magnetic field of 2700 + 100 gauss to be coincident with strong absorption lines of both molecules. A reduced pressure multipass absorption cell coupled with this light source will provide sensitivity to carbon monoxide of 0.6 ppb and nitrous oxide of 0.12ppb for continuous sampling with a few seconds response time. The final instrument would be useful in tropospheric photochemical studies and long term monitoring applications of carbon monoxide and nitrous oxide. ***